Eigenvector Techniques for Time and Frequency Domain Analysis of Sensory Evoked Brain Potentials

9308028 Davila The goal of this Research Initiation award is to develop several new techniques that can be used to analyze sensory evoked potentials. One methods is a generalization of the traditional ensemble averaging approach that should maximize the signal-to- noise ratio. The second proposed method would track the principle eigenvectors of the evoked potential autocorrelation matrix in order to find the frequency spectrum of the data. This research is important since it has the potential to reduce the amount of data, and consequently the time, needed to estimate sensory evoked potential. ***